CAREER: Deciphering the mechanisms of symbiont selection and specificity

Beneficial partnerships with bacteria are essential for the well-being of all of life on Earth, shaping health and fitness, ecosystem functioning, and even food security. Despite how dependent we are on these symbioitc associations; little is known regarding how hosts initially identify and select specific microbial partners from the complex communities in their surrounding environment. This is especially true at the finest scales, where hosts must distinguish between highly similar species or genetically distinct strains of the same species. This project addresses this challenge using the Siphamia- Photobacterium mandapamensis symbiosis as a highly tractable vertebrate-bacteria model system to investigate the molecular mechanisms that govern how animals recognize and initiate symbiosis with specific microbial partners and not others. Results will advance our understanding of how beneficial animal-microbe associations are established and maintained, with implications across a range of systems, including the vertebrate gut microbiome. This CAREER project will develop a new course-based undergraduate research experience in microbial genomics along with workshops and structured training of graduate students in cutting-edge genomic technologies, advancing national priorities in biotechnology and workforce development.

The overall goal of this project is to determine the molecular mechanisms by which animal hosts recognize and selectively recruit specific microbial symbionts, with an emphasis on subspecies (strain)-level discrimination. This research uses the experimentally tractable Siphamia-Photobacterium mandapamensis symbiosis, a highly specific partnership between a coral reef fish and luminous bacterium, as a model for investigating the mechanisms underpinning host specificity. The bacterial symbiont is acquired from the seawater early in host development and housed in a specialized light organ attached to the fish’s intestine. Despite the strict species-level specificity of the association, individual fish associate with multiple genetically distinct strains of P. mandapamensis, and patterns of strain-level differences have been observed between host species, making this system ideal for investigating active host discrimination among closely related bacterial symbiont strains. Specific research aims include comparative genomics of bacterial strains isolated from co-occurring but divergent Siphamia species to determine whether different hosts selectively associate with distinct symbiont strains, controlled colonization and competition assays using fluorescently-labelled strains to determine whether hosts preferentially associate with native over non-native strains, and single-nucleus RNA sequencing throughout symbiont acquisition to identify host genes governing partner recognition at the cellular level, developing the first cell-type-resolved molecular atlas of this model association. By determining how hosts distinguish beneficial bacteria from closely related but incompatible bacterial strains, this project has direct implications for future advances in biotechnology, such as informed engineering of microbial symbionts for therapeutic applications, probiotic design, and the development of synthetic host-microbe systems.